Experimental Particle Physics

9501566 Lobkowicz Analysis continues on photon and neutral pion production by hadrons. Data were obtained in exposures to pion and proton beams at Fermilab. Direct photon yields will be compared with neutral pion yields in pion interactions with protons and with neutrons. Further goals are comparison of production by protons at 500 FeV and 800 GeV and their dependence on target nuclear species using data obtained with Beryllium, Copper, Silicon as well as Hydrogen targets. Two PhD these will be written on these analyses by graduate students at the University of Rochester supported by this grant. ***